Molecular Structure and Vibrational Potential Energy Surfaces in Ground and Excited Electronic States

This research, part of the Experimental Physical Chemistry Program, uses the techniques of infrared, Raman, and fluorescence spectroscopy to obtain energy levels and potential energy surfaces for cyclic and bicyclic molecules. Other areas of study include intermolecular interactions in liquids and vibrational energy levels of metal clusters. These studies will elucidate chemical bonding and intramolecular forces, both in the ground and excited states of the systems studied. Far infrared, Raman and Fluorescence spectroscopy will be used to study the energy levels of cyclic, four, five and six membered rings, bicyclic species and cyclohexene-like molecules. These data will be interpreted to yield potential energy surfaces for these species. Raman difference spectroscopy will be used to obtain small frequency shifts in isotopic mixtures of liquids in order to understand intermolecular interactions. Infrared and Raman matrix isolation spectra will be obtained for prototypical metal clusters in order to determine the vibrational force fields for these molecules.